Travel Support to Attend the Eighth Symposium on Global Change Studies; February 2-7, 1997, Long Beach, California

9614942 Hallgren This award provides travel support for graduate students to attend the Symposium on Global Change Studies, which is taking place at the American Meteorological Society's 77th Annual Meeting, February 2-7, 1997, in Long Beach, California.